Removal of Submicron Particles and Sulfur and Nitrogen Oxides

In Phase I, a new process for control of the emissions of submicron particles, sulfur oxides (SOx) and nitrogen oxides (NOx) from combustion of coal has been demonstrated on the laboratory scale. Sox and Nox are controlled with an effectiveness comparable to wet limestone scrubbing and selective catalytic reduction, the best presently available control technologies. A preliminary estimate indicates that the cost of controlling submicron particles, SOx and Nox via the new process will be less than the cost of controlling SOx and Nox via the best of presently available technologies, and with a cost which is lower than wet limestone scrubbing and selective catalytic reduction. In Phase II it is proposed to demonstrate this new pollution control process on a pilot plant scale for a coal burning combustion system, show that it can operate in a satisfactory manner, and develop a more detailed analysis of process economics.